Workshop on Real, Tropical, and Complex Geometry

Ideas from Gromov-Witten theory in the 90's have led to new
perspectives on classical questions of complex enumerative
geometry. Many old problems have been elegantly solved. An
example is the basic question of counting rational curves
in the plane passing through given points.

Beginning about 10 year later, in the present decade, a renewal
of interest in enumerative questions in real algebraic geometry
has occurred with impetus from Gromov-Witten theory and
tropical methods.

The workshop on "Real, topical, and complex
enumerative geometry" will, for the first time, bring mathematicians
in these various fields together for a common discussion
of results, ideas, and future directions.

Several lecture courses addressed to broad audiences will
take place during the first week. C. Faber, A. Gathmann, R. Vakil
and J.-Y. Welschinger have agreed to give lecture series.
Graduate students interested in the field will greatly
benefits from these courses. The second week will have several
1 hour research talks on more advanced topics.

The main purpose of the grant is to allow junior US
mathematicians the opportunity of participating in the
workshop.